Cone Signals and the Functional Anatomy of Visual Cortex

Experiments using a novel and innovative technique for mapping specific photoreceptor activities in the cerebral cortex are designed to provide answers to crucial questions about the way in which color information is processed at the highest levels of the visual pathway. These studies should help to resolve a long outstanding problem in human vision and pioneer a fairly straightforward technique for the study of most other visual systems that use color information in guiding behavior. This is the first such attempt to use cone photoreceptor-isolating stimuli to map activity in the primary visual cortex using the metabolic marker, 2- deoxyglucose and promises to be a very powerful new addition to understanding cortical mechanisms of color perception.